Support for U.S. High Energy Physicists to Attend XXXIII'rd Rencontres de Moriond Conferences; Les Arcs, Savoie, France; March 15-28, 1998

The Moriond series of conferences cover the status of particle physics. The first focuses on the electroweak theory of particle physics and the second on Quantum Chromodynamics. The conferences are attended by scientists from all over the world and this grant will enable several students to participate in the meetings.